Hadronic Physics with Electromagnetic Probes at HERMES

The physics program supported by this grant is directed at the
study of experimental nuclear physics at the HERA collider ring in
Germany. Research will be carried out in high energy electron
scattering to determine the contribution of quarks and gluons to
the intrinsic angular momentum of the proton and neutron by
measuring the scattering of polarized electrons on polarized
targets. The main emphasis will be on studying the gluon
polarization, the orbital angular momentum contribution to the
nucleon spin, and transverse polarization effects in nucleons.
Education and training of both, undergraduate and graduate
students, and postdoctoral scholars, as well as outreach aimed at
the general public is an important aspect of this research program.